Postdoctoral Fellowship: MSPRF: Precise Estimates for Minkowski Sums of Compact Sets

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Mark Meyer is “Precise Estimates for Minkowski Sums of Compact Sets”. The host institution for the fellowship is the Université Gustave Eiffel and the sponsoring scientist is Matthieu Fradelizi.